Risk Sensitive Control Theory and Financial Decision Making

The purpose of the research project is to continue the development of
new methodologies involving mathematical control theory, stochastic
analysis, statistics of random processes, and financial mathematics for the
purpose of understanding and solving complex problems in financial decision
making. The heart of the proposed research involves the development of
continuous time, risk sensitive control models for making optimal investment
decisions. Such models will feature underlying economic factors that are
modeled explicitly as stochastic processes, the infinite horizon criterion
of maximizing the portfolio's risk adjusted growth rate, and constraints on
the trading strategies. This basic theory will be extended in at least three
directions. The first is to analogous models in discrete time, thereby
leading to additional computational methods. The second is to continuous
time models which include transaction costs, thereby leading to the study of
quasi-variational inequalities. And a third extension will be to cases where
one or more of the underlying factors are not observable, thereby involving
in the case of discrete time the theory of hidden Markov models.

The research is important for two principal reasons. First, the new
mathematical methodologies are likely to enhance the competitiveness of U.S.
financial institutions. Second, the research will lead to a better
understanding about risk management and how investor decisions affect and
are affected by financial markets and the economy. For example, an important
special case of the basic model is where the assets are bonds and the
underlying factors are macroeconomic variables. The anticipated results will
elucidate the relationships between investors' buying and selling decisions,
the level of interest rates, and other macroeconomic variables such as
unemployment rates. By looking at cases where the underlying factors
correspond to financial derivatives, another likely by-product of this
research is a better understanding of how to manage risk by trading futures
and options. Additional versions of the model can be used to study the
interplay between macroeconomic variables and the stock market. Indeed,
likely to emerge from this project are new explanations of business cycles
and the long range dependence of stock market prices that have been reported
in the financial literature.